Experimental Determinations of Trace Element Distributions Between Clinopyroxene, Garnet and MORB-Type Melts

9303028 Salters The student will determine the partition coefficients for U, Th, Pb, Sm, Nd, Lu, Hf, and Ar for mantle minerals to better constrain the melting process that yields mid ocean ridge volcanism. The partitioning will be determined by analyses of experimentally grown crystals and coexisting melt by ion microprobe, and by isotope dilution analyses of naturally occurring mineral pairs. ***